REU: Southwest Earth Sciences

9732364 Frodeman This proposal responds to the changing demands being placed upon science by offering an expanded type of research experience for undergraduates. The Southwest Earth Studies Program is an 8 week summer research program for 10 students, half from the sciences, half from the humanities. It combines research on scientific issues surrounding acid mine drainage in southwest Colorado with research into the relationship between science and public policy. The goal of this program is for students to see that scientific research today operates within a social and political context that must be acknowledged if they are to be successful scientists and citizens. Students will gather and evaluate data; discuss the philosophical issues surrounding the interpretation and use of this data; and combine this data with political perspectives for the devising of realistic public policy alternatives. ***